Collaborative Research: Polymeric Waste Valorization: Mechanistic Insight via Timescale-Resolved Pyrolysis Chemistry and Catalytic Surface Control

Professors Mark Sulkes at Tulane University and Alena Kubatova at the University of North Dakota are investigating how the earliest microsecond‑timescale events in polymeric waste pyrolysis dictate whether carbon ultimately flows into hazardous polycyclic aromatic hydrocarbons (PAHs) or into benign, value‑added products. The promise of thermochemical valorization of polymeric waste has been hindered by the lack of information on these timescales, when radical initiation and branching reactions take place to form either useful small molecules or undesirable products leading to PAHs and char. To address these goals, Professors Sulkes and Kubatova and their students will use a unique molecular beam-based laser pyrolysis platform that combines microsecond resolved soft photoionization mass spectrometry with thermometer ion temperature calibrations; complementary pyrolysis gas chromatography with high-resolution mass spectrometry will then provide clear product attributions and reveal the longer timescale branching mechanisms that govern product selectivity in lignin, polyethylene, polystyrene, elastomers, and cross linked matrices. Their studies will advance fundamental knowledge of environmentally relevant thermal processes and could reduce pollutant formation in waste to fuel operations, enabling new pathways for circular carbon valorization. A broad K-12 educational outreach will emphasize the “trash-to-treasure” opportunities of the underlying basic science.

Leveraging a unique molecular‑beam laser pyrolysis platform capable of heating rates of 106 °C/s along with longer time scale pyrolysis gas chromatography with high-resolution mass spectrometry (Pyr-GC-HRMS), the research will reveal the radical initiation and branching mechanisms that govern product selectivity in lignin, polyethylene, polystyrene, elastomers, and cross‑linked matrices. The work will develop a mechanistic framework that links polymer feedstock structure, catalytic surface chemistry, and ultrafast radical dynamics to product distributions. The molecular beam platform combines microsecond‑resolved soft photoionization mass spectrometry (both VUV single photon and resonance enhanced multiphoton ionization) with thermometer ion temperature calibrations. For detailed product identification, mechanistic schemes are validated and interpolated to longer timescales (which is essential for practical applications) by evolved‑gas analysis with HRMS and pyrolysis‑GC‑MS analysis. Through these methods, the project will: (1) map primary radical pathways and possible evolution to PAH precursors, (2) elucidate catalytic surface effects (e.g., tungsten, graphite) on radical suppression and oxygen‑insertion chemistry, and (3) identify intervention points for pollutant suppression and target product selectivity. The results will advance fundamental knowledge of environmentally relevant thermal processes and inform catalytic strategies for waste upcycling.